Connecting Rockhurst College Computer Network to NSFNET

9318860 McCleary This project connects Rockhurst College to NSFNET through MIDnet over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.